ASL Phonology Workshop to be held at the Linguistic Society of America Institute during the Summer of 89

ABSTRACT This grant will fund a workshop on the phonological structure of the American Sign Language of the deaf (ASL), and its implications for our understanding of phonological structure in human language. The workshop will take place over a weekend in the summer of 1989, in conjunction with the Linguistic Society of America Institute, to be hosted by the University of Arizona, Tucson. The workshop is designed to (a) provide a forum for the interaction of phonologists currently working on ASL, with linguists involved in other areas of phonological research; and (b) familiarize a wider linguistic audience with recent research in this area, and its import for our understanding of phonological structure in general. The workshop is expected to accelerate the development of this subfield of linguistics, which promises to provide significant advances in our understanding of the role played by the modality of the signal in determining the nature of phonologic structure in human language. An edited collection of papers resulting from the workshop will be published.